Elementary particles at colliders and in astrophysics

This project involves the theory and phenomenology of experiments at the
upcoming Large Hadron Collider (LHC), and of observations in astrophysics
and cosmology that search for physics beyond the current Standard Model
(SM) of elementary particles and forces.
The project will involve the study of many aspects of the only ultra-heavy
quark, the top. Because of its special features, such as the accessibility of
its spin and charge information, its large mass and linkage to EW symmetry
breaking, it is expected to be very useful in analyzing signals of SM extensions
at the LHC. At the astroparticle physics and cosmology frontier, there are
many additional issues, which will be studied, including dark matter searches
and the LHC reach for direct observation of a dark matter candidate, neutrino
physics in the context of late neutrino masses, weak scale leptogenesis and
observation of relic supernova neutrinos. The proposed collider physics program is related to the detailed study of the top quark properties, and includes interesting and promising methods to extract information about new physics.
Another aspect of the proposal is phenomenological studies of warped extra
dimensional scenarios. The PI will study the phenomenological implications of
Kaluza Klein (KK) (small compact extra dimensional) gluons, decaying mostly into top-quark pairs, and KK gravitons, decaying prominently into longitudinal gauge bosons. The emphasis will be on a proposed method to differentiate between SUSY and universal extra dimension scenarios. There is also a proposal to use the diffuse anti-neutrino flux from core-collapse supernovae to extract cosmological parameters. Another proposed investigation is a study of minimal flavor violating models, as well as of the properties of what the PI calls NMFV, by exploring the LHCb physics results could shed light on the origin of flavor and put strong constraints on a large class of models.